Project PIEDMONT - Physics Incorporating Educational Development: Multiplying Output through Networks of Teachers

This project offers an opportunity to a substantial fraction of high school physics teachers (70) in North Carolina to participate in a three-year workshop. This will consist of three summer sessions of five weeks each, 18 Saturday meetings during the intervening academic years and communication to each of the teachers on at least a weekly basis via NEWTON, a VAX-based electronic mail abnd database system being developed by the University's Academic Computing Center and members of the regional high school advisory headed by this Project's staff. Conceptual difficulties will be addressed at the beginning of each summer session. The development of problem-solving skills will make extensive use of the college version of The Mechanical Universe and Beyond as well as the field-tested high school version of the same program. Problem-solving aspects of the workshops and concepts components will engage the teachers in the kinds of activities and physics background necessary to effectively teach secondary physics. Limitations on time of interaction among workshop participants and on numbers of minority teachers reached by the workshop will be addressed through NEWTON. The staff and the participants will use NEWTON in order to discuss classroom physics and assigned work, to continually evaluate the workshop as well as to organize physics competition among schools, advertise local and regional physics meetings, and other activities whose purpose is to invigorate and establish a greater sense of commonality in the community of physics educators. An amount equivalent to 30% of the NSF request has been cost- shared by the University, the participating school districts and public and private organizations.